Computer Supported Cooperative Learning Environment for Multivariable Calculus

Computer laboratory projects are being introduced in all sections of the basic multivariable calculus course at the University of Michigan (1500-1700 students per year). The computer is being used as a discovery tool. The projects' main features are: promotion of active learning and hands-on experience, visualization through computer graphics, gradually introduced Maple syntax, furtherance of conceptual understanding, critical thinking, and quantitative reasoning. Several activities are included in the project: to develop a library of laboratory projects (long term: each project is to culminate with a problem applied to science, economics or engineering); to develop and implement cooperative learning techniques in the computer laboratory environment; to develop and implement motivational material suitable for feedback techniques in large lecture classes, using a workstation in every classroom connected to an LCD plate; to write TA and instructor manuals and videotapes, and to create an intensive TA and Faculty training program. The composition of the student body is very diverse. The materials are being written with the consideration that some students have no prior computer experience. Diversity in the cooperative groups will strengthen them.